Ross Young Scholars Program

The Ohio State University will continue an 8-week, residential Young Scholars project in Mathematics for 57 students entering grades 9-12. Activities in discrete mathematics and number theory will provide a basis for development of reasoned argument. The project will include visits by mathematicians and scientists working "in the field."